CAREER: How do mixotroph phenotypic plasticity and adaptive evolution constrain climate feedbacks?

In the ocean, plankton that photosynthesize remove carbon dioxide from the atmosphere, while plankton that acquire carbon by capturing prey return carbon dioxide to the atmosphere. Mixotrophs are plankton that combine both forms of metabolism, functioning as both plant and animal simultaneously, and the extent to which they they rely on each process depends on environmental conditions.This project combines mathematical models and laboratory experiments to examine how mixotrophs may adapt or evolve in response to environmental change, informing for better predictions of their effects on the carbon cycle under future ocean conditions. The project also supports research training for undergraduate students and postdoctoral sciences and education and public outreach designed to expand math literacy, including training for K-12 teachers, educational programs for museum visitors, and development of undergraduate courses at the intersection of mathematics and biology.

This project integrates experimental and mathematical modeling approaches to test theoretical predictions about how phenotypic plasticity constrains evolution in mixotrophs. The investigator is 1) experimentally evolving phentoyped mixotroph lineages to test their capacity for adaptive evolution, 2) measuring rates of photosynthesis and phagotrophy in evolved lineages to quantify impacts on the carbon cycle, 3) using genome and transcriptome sequencing to identify the molecular basis of adaptation, and 4) developing mathematical models to understand the mechanistic bases of plasticity and evolution The resulting validated model modules are incorporated into upper ocean global ecosystem models to understand how these strategies change mixotroph abundance and contributions to the carbon cycle under future ocean conditions.

Funds for this award are provided by the Biological Oceanography and Ocean Education Programs.